In-Situ Synchrotron Radiation Studies of GaN Growth

9704201 Speck This collaborative project between researchers at the University of California, Santa Barbara and the Argonne National Laboratory, addresses fundamental research issues in the growth of GaN by metallo-organic chemical vapor deposition(MOCVD), in-situ atomic-scale characterization of the MOCVD growth process, with the scientific goal to understand the basic chemical and physical processes and the fundamental mechanism of crystal growth by MOCVD. The approach utilizes real-time synchrotron x-ray techniques to measure structure, chemistry, and surface morphology evolution within a state-of-the-art MOCVD reactor. The project emphasizes strong interlinking between growth, structural characterization, physical property measurements, and related device research efforts. %%% The project addresses forefront research issues in a topical area of materials science having high technological relevance, compact and efficient light sources in the blue-green spectral region. The research will contribute basic materials science knowledge at a fundamental level to important aspects of electronic/photonic devices and integrated circuitry, in general. Additionally, the fundamental knowledge and understanding gained from the research is expected to contribute to improving the performance of advanced devices and circuits by providing a fundamental understanding and a basis for designing and producing improved materials, and materials combinations. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***